ITR: Using Portable Computing to Build Observational Assessments for Mathematics Learning

This project is aimed at how to create and use elementary mathematics diagnostic tools in classroom contexts. An established diagnostic framework, the Diagnostic Test of Arithmetic Skills, that enables teachers to assess students' procedural and conceptual approaches to mathematical problem-solving.

The specific goals of the project are to:

Revise, modify, and update the Diagnostic Test of Arithmetic Skills to bring it into alignment with the most current research on mathematics teaching and learning.

Build a mathematics diagnostic application focused on multiplication, a content areas that is pedagogically and conceptually complex

Identify the required professional development supports, and build prototype materials for the multiplication application

Conduct research studies on the reliability of the diagnostic tool and on whether the use of the tool affects teachers' thinking about mathematics and instruction.